VizChem - Visualizing Chemistry

Multimedia computer modules suitable for undergraduate chemistry lecture and laboratory courses are being designed. The modules are both content and skills oriented, interdisciplinary and multidimensional, and take full advantage of the benefits of simulation, computation, and visualization. They are being designed and created as tools for the teacher and for the student, and are primarily directed at general chemistry, organic chemistry, physical chemistry, inorganic chemistry, and materials science. Module topics will include the next version of IR Tutor, and applicable and important spectroscopies and diagnostic devices such as electronic absorption (UV-Vis) and electronic emission (fluorescence and phosphorescence); proton and carbon-13 nuclear magnetic resonance (NMR); atomic absorption (AA); thermal analysis; topics in polymer chemistry and materials science; and PCR technology. Secondary objectives of the project include (1) a broadening of the chemistry curriculum beyond traditional disciplinary boundaries, (2) new undergraduate courses, (3) enhanced effectiveness of teaching assistants, (4) an expanded role for post-doctoral students in undergraduate education, and (5) improved performance by classes of students.